Fronties in Materials Research: A CIAM-CIMAT-CONICYT Workshop; April 26-29, 2004; Santiago, Chile

An interdisciplinary, international, materials science workshop will be held in Santiago, Chile, on April 26-29, 2004, under the sponsorship of NSF and CONICYT-Chile. The workshop is organized by scientists from countries in the Americas through the Inter-American Materials Collaboration (CIAM), the Center for Advanced Materials Research (CIMAT) in Chile, and the U. of California at Santa Barbara. The workshop provides a forum for scientific exchange at the cutting edge of a rapidly developing field by bringing together materials researchers and students from across the continent, thus enhancing collaborations among participants with an emphasis on interdisciplinarity. An attendance of about 200 is expected, students and postdoctoral research associates comprise about half of the participants.

This award is supported by the Division of Materials Research, the Office of International Science and Engineering and the Division of Chemical and Transport Systems.